A Workshop on Research Issues in Software Engineering (February 25-26, 1988 in Atlanta, Georgia)

A workshop on Research Issues in Software Engineering is to be organized. Approximately 25 persons representing academia, industry and government will be invited. There are at least three foci of the workshop. First the workshop attendees will need to identify the major research issues in Software Engineering. The workshop would concentrate on topics which represent activities that can be carried out under NSF programs, i.e., research in an academic setting, but not excluding industrial participation. The second focus will be on appropriate research paradigms. Software Engineering is a broad subject and no single paradigm will always be appropriate. The workshop will attempt to identify approaches to the topics of research. This means context as well methodology, i.e., is the research best carried out by a single investigator, by teams, by consortia, or by academic-industrial paternerships. Issues of scale will be also be considered. The workshop also consider questions related to funding levels and related issues. The workshop will produce a comprehensive document that addresses the issues and the proposed courses of action, provide and assessment of the national needs vis-a-vis their impact on Software Engineering research, and the perceived priorities on these issues.//